Model Undergraduate Integrated Optics Laboratory

Fiber and integrated optical technologies have witnessed rapid development over the last decade and are finding extensive commercial applications in optical communications, sensor signal processing, and distributed control. This project will develop an instructional senior level undergraduate laboratory providing students with hands-on experience in the design, fabrication, and testing of integrated optical devices. The laboratory will serve as a model which can be easily and relatively inexpensively emulated by other universities across the country.